Acquisition of an X-ray Area Detector for Macromolecular Crystallography

NSF matching funds are requested to help purchase an Imaging Plate X-ray Area Detector for shared use by two independent crystallography groups at the Rockefeller University. These two groups, headed by John Kuriyan and Stephen K. Burley, are exploring the intrinsic link between the three-dimensional structures of macromolecules and their biological function. In collaboration with groups at Rockefeller and elsewhere, the projects underway include structure-function studies on: (1) flavo-protein disulfide reductases (J.K.), (2) bacterial oxidative stress sensors and transcriptional regulation of oxidative stress-induced enzymes (J.K.), (3) developmental gene products in Drosophila (J.K.), (4) eukaryotic transcription factor IID or TATA factor (S.K.B.), (5) eukaryotic transcriptional upstream stimulator factor (S.K.B.). A rotating- anode X-ray generator and a high speed 4-circle single counter diffractometer have already been purchased, along with associated computing equipment. Acquisition of the proposed area detector will result in a state-of-the-art X-ray data collection facility.